Large-scale Forcing of the Agulhas Variability

Matano
9819223

This work will examine the coupling between the general circulation
of the Indian and South Atlantic Oceans that occurs via the Agulhas
Current system. Combining diagnosis of existing model output,
stability analysis of typical Agulhas Current profiles, process
modeling and an analysis of regional variability in satellite-derived
SSH and SST fields, the work will focus on: (a) an investigation of
whether westward propagating disturbances in the tropical Indian Ocean
influence the variability of the Agulhas Current retroflection,
together with the mechanisms that connect the two, and (b) a study of
the influence of variability in the South Atlantic subtropical gyre
and in the Agulhas Current on the composition and variability of the
Benguela Current system.